NSF CPS Week 2015 Student Travel Grant

The proposal is to enable students from educational institutions in the United States to attend the CPSWeek 2015 collection of conferences, which are to be held April 13-17, 2015, in Seattle, Washington. CPSWeek is an annual international multi-conference for Cyber-Physical Systems, comprising five major multi-day conferences, multiple one-day workshops and tutorials. It moves from country to country each year. Attending the conference will provide students with a unique opportunity to listen to and learn from the keynote speeches, presentations, posters and demos on cutting edge topics on cyber-physical systems, and to network with both leaders and other young researchers in this area.

CPS research is expected to have positive societal impacts in many areas, including transportation, energy, agriculture, water/sewage treatment, environmental management and manufacturing systems. These systems must operate safely, dependably, securely, efficiently and respond to events in real time. A key feature of CPS research is the requirement to cooperate across disciplines such as computer science, computer architecture and hardware, materials science and sensor design, software engineering, networking, and control engineering. In this inherently interdisciplinary field, where collaborations are essential, meeting other researchers is especially important. CPSWeek brings together the U.S. and international CPS research community. For these reasons, strong participation in this event, especially among students (our next generation of researchers) is important to maintaining and advancing CPS research in the U.S. In particular, this project supports students from groups and institutions that are underrepresented in the CPS research community.